Analysis and Geometry of Nonlinear PDEs

In recent years, the analysis and geometry of sub-Riemannian spaces has received increasing attention. The quintessential examples of sub-Riemannian settings are the so-called Carnot groups, whose fundamental role in analysis was first highlighted by E. M. Stein. They now occupy a central position not only in such mathematical areas as hypoelliptic partial differential equations, harmonic analysis, and CR geometric function theory, but also in the applied sciences (e.g., mathematical finance, mechanical engineering, neurophysiology of the brain). The most distinctive feature of sub-Riemannian spaces is that the metric structure can be viewed as a constrained geometry, where motion is only possible along a prescribed set of directions, changing from point to point. The principal investigator has a long-term project aimed at exploring geometric and analytic properties of these structures. More specifically, she proposes to continue her study of the Bernstein problem and of the regularity of minimal surfaces in Carnot groups, to investigate subelliptic boundary value problems, and to develop a regularity theory for fully nonlinear equations of Monge-Ampere type. Another area of interest in this project is the investigation of elliptic and parabolic free boundary problems naturally arising in the theory of flame propagation. The principal investigator also intends to study a class of minimization problems, in which the relevant functional is modeled after the one introduced by Alt and Caffarelli. One of the main objectives of the proposed research is to prove regularity properties of the free boundary. The necessary tools from harmonic analysis and partial differential equations for the study of these problems will be developed concurrently. Finally, motivated by the striking analogy between the theories of minimal surfaces and of free boundaries in the Euclidean setting, the PI plans to merge her different lines of research into a yet quite unexplored area, namely, the study of free boundary problems (both of obstacle and Alt-Caffarelli type) in Carnot groups. The principal investigator will integrate her research plan with several educational, mentoring, and outreach activities.

This project will conduct research that lies at the interface of calculus of variations, partial differential equations, and geometric measure theory. The focus is on the study of analytic and geometric properties of solutions to variational inequalities and partial differential equations involving a system of noncommuting vector fields. The problems under consideration not only arise in a variety of mathematical contexts (e.g., optimal control theory, mathematical finance, and geometry), but also are of interest in other fields such as mechanical engineering, robotics, and neurophysiology. Another proposed research area concerns free boundary problems, which naturally arise in physics and engineering when a conserved quantity or relation changes discontinuously across some value of the variables under consideration. The free boundary appears, for instance, as the interface between a fluid and the air, or between water and ice. Part of the project aims at studying regularity properties of the free boundary in burnt-unburnt mixtures. The results of this investigation will lead to a better understanding of the models, to the improvement of simulation methods, and ultimately to a precise description of how flames propagate in nonhomogeneous media. Several elements of this project find their motivations in the applied sciences. On the other hand, the solutions to these probelms involve an interplay of ideas from different areas of analysis and geometry. It is conceivable that all these different fields will benefit from this synergy. The principal investigator is committed to the training of future generations of mathematicians, and to increasing the representation of women in the scientific community, via the organization of a variety of educational and mentoring activities for graduate, undergraduate, and K-12 students.